Mathematical Sciences: Riemannian Geometry and Geometric Complex Analysis

Riemannian Geometry and Geometric Complex Analysis Investigation is proposed in differential geometry, geometric several variables, and methods of partial differential equations in geometry, including the following specific topics: The Bergman metric geometry of pseudo-convex domains, compact manifolds of non-negative curvature, non-compact manifolds of non-negative curvature, the spectrum of the Laplacian, and the geometry of orbifolds. The overall research thrust of the project is the study of the relationship of the concept of curvature to the global geometry, topology, and analysis of Riemannian manifolds via geometric, complex analytic and partial differential equation methods.